Investigations of Polyaromatic Hydrocarbon Adsorption on Metals: Electronic Structure, Ordering and Chirality

Abstract
CHE-0518563
Parkinson/Colorado State

Professor Bruce A. Parkinson and his colleagues in the Department of Chemistry at Colorado State University are examining the structure of monolayers of aromatic hydrocarbon molecules on gold surfaces using scanning probe microscopy. With the support of the Analytical and Surface Chemistry Program, this group is investigating the interactions leading to ordered monolayers of these aromatic molecules, and the forces that lead to chiral structures on these surfaces. This work provides the fundamental information needed for the design and implementation of organic molecular electronic devices, and for the design of enantioselective heterogeneous catalysts.

With the support of the Analytical and Surface Chemistry Program, Professor Parkinson at Colorado State University is studying the structure of aromatic hydrocarbon monolayers on gold surfaces. The structure of these adsorbed layers, and chiral structures that result, are examined using scanning probe microscopy. Fundamental information useful for the design of enantioselective catalysts and molecular electronic devices results from this work.